International Research Fellow Awards Program: Quantizing Gravity via Causal Sets

9600348 Daughton The International Research Fellow Awards Program enables U.S. scientists and engineers to conduct three to twentyfour months of research abroad. The program's awards provide opportunities for joint research, and the use of unique or complementary facilities, expertise and experimental conditions abroad. This award will support a twelve-month postdoctoral research visit by Dr. Alan R. Daughton to work with Dr. Henri Waelbroeck at Instituto de Ciencias Nucleares, UNAM in Mexico City, Mexico. Dr. Daughton has been invited to visit the Department of Gravitation and Field Theory of Universidad Nacional Autonoma to establish a collaboration in the field of discrete quantum gravity. That department is pursuing three different lines of research: the interpretation problems, specifically the "problem of time"; the mathematics of quantum groups and their implications as to the structure of spacetime; and discrete models of quamtum gravity. The institute has a Sun system built around a Sparcsystem 1000. In addition to Dr. Waelbroeck, Dr. Daughton will be working with Professor Rafael Sorkin, who will be working on a causal set program. ***